Many Body Physics of Cold Atomic Gases

This proposal describes a theoretical study of important problems in the many body
physics of cold atoms and related systems. Building on previous work, the investigator
will explore several topical subjects, including (1) properties of a Fermi gas near a
Feshbach resonance; (2) spectra of atomic hydrogen on Helium surfaces and
embedded in a molecular hydrogen matrix; and (3)dynamics of tuning the interaction
strength for atoms trapped in a strong optical lattice. These projects are motivated by (i)
interest in fundamental physical properties of cold atoms, (ii) desires to use cold atoms
as a model system to understand other many body systems, and (iii) puzzles found in
ongoing experiments. Studying cold atoms has impact on many body problems in
condensed matter and nuclear physics.